Calculus of Variations in L-infinity and Related Nonlinear Partial Differential Equations

DMS-0200169: Calculus of Variations in L-infinity and Nonlinear PDE's
PI: Robert R. Jensen, Co-PI: Emmanuel N. Barron

Abstract:

The study of nonlinear essential supremum functionals is the focus
of this project. In variational problems with such functionals the
natural questions of interest are existence of an absolute (or
local) minimizer, i.e., a function which minimizes the functional
on every subdomain, necessary conditions for the minimizer leading
to very nonlinear differential equations, and regularity of the
minimizer. In contrast to the classical calculus of variations,
even under very strong assumptions, regularity beyond continuous
differentiability is not expected, but even this much smoothness
is unknown. Virtually every question posed in classical
variational analysis can be posed for supremum functionals--
constraints, relaxation, homogenization, duality--and this can be
done for both scalar and vector valued problems where the results
are more difficult. This subject has placed a new focus on
viscosity solutions for fully nonlinear equations, and a new
emphasis on an old area of convex analysis, quasiconvexity. The
motivation for the study of such problems comes from consideration
of physical problems in which the use of the typical energy norm
is not adequate, that is, one must design for the worst case.
Supremum norm functionals lack strong differentiability and the
subsequent difficulties associated with this lack must be dealt
with using all forms of nonlinear analysis.

The use of variational analysis in engineering, physics, medicine,
economics, and other fields is well established. Extreme value
engineering is an area in which one seeks to consider the worst
case in order to properly design or build some mechanism. In this
project these two disciplines are merged to apply variational
analysis in order to accomodate a worst case analysis. In certain
areas, such as medicine, or structural engineering, it is clear
that the worst case analysis is the only realistic design. For
example, an oncological treatment cannot seek to minimize the
average tumor load, but must minimize the maximum tumor load. A
bridge should not be designed to minimize average stresses but
maximum pointwise stresses. Many control mechanisms implemented
only when a maximum indicator is triggered. These are all problems
which are applications of the project considered and in which many
new techniques must be developed. The basic and fundamental
results of this area of variational analysis, including existence
and the determination of criteria sufficient to determine the
optimal function, will be studied. The analysis leads to the study
of nonlinear partial differential equations and systems of such
equations.